Bioinspired Multispectral Imager for Near Infrared Fluorescence Image Guided Surgery

ABSTRACT

Gruev, Victor
1603933

Currently, cancer surgeons use their naked eye and palpitation because other imaging technologies are not conducive to the operating room. This proposal deals with the design of an image-guided surgical platform where surgeons would wear goggles and a specialized imaging device to obtain an enhanced view of the boundaries of a tumor site

While many imaging technologies exist, none are conducive to the operating room either due to size or incompatibility with surgical tools. To address current limitations the PIs propose a biologically inspired solution that mimics the compound eye of the mantis shrimp. They will employ pixelated filters with a transmission ratio of 90% and the pixel pitch will match that of a CMOS photodiode array